SGER: Investigation of COMIS for Paleomagnetic and Rock-Magnetic Research

Renne
EAR-0236925

The goal of this Small Grant for Exploratory Research (SGER) project is to provide rock-magnetic and analytical transmission electron microscope data for crystallographically oriented magnetite inclusions in silicates (COMIS) in order to explore the conditions of origin of COMIS, and the fidelity with which they record magnetic fields under those conditions. The research plan involves analyzing a number of COMIS in diverse samples in order to evaluate if the results obtained are robust enough to use them as paleomagnetic indicators. If this SGER is successful, the techniques developed for COMIS will then be used for a variety of paleomagnetic applications, including measurement of geomagnetic paleointensity and tectonic applications of paleomagnetic data. The results will also be useful for evaluating the possibility that stable magnetization of the oceanic crust, and of magnetic anomalies on other planets, is due to COMIS.